The Study of Vibrationally Excited Molecules by Low Energy Electron Scattering

Studies of the ionization of vibrationally excited nitrogen open up an important new area--an approach by the use of a target focused by a free jet expansion. Also, the use of laser excitation forproduction of either state- or temperature-specific vibrational distributions will provide opportunities for an entirely new class of measurements. With the emphasis of work at the interface between solid-state and gas-phase chemistry and physics, the research is significant for practical technologicalapplications in discharges of many kinds. Knowledge of ionization potential is critical to the understanding of ionization balance in discharge plasmas; dissociative attachment to form negative ions may be the key to the control of high power switches; and the understanding and control of vibrational populations is essential to the modeling and design of future laser systems. The diagnostics used may also prove quite useful in eventual technologies for the tailoring of chemical reactions by the use of lasers to producestate- specific molecular populations.